Projective Structures in Teichmuller Theory and Kleinian Groups

Abstract

Award: DMS-0805525
Principal Investigator: David Dumas

The principal investigator will explore complex projective
structures on surfaces and their applications to Teichmuller
theory, Kleinian groups, and hyperbolic 3-manifolds. The space
of all complex projective structures on a fixed surface is a
contractible manifold which has two natural but very different
coordinate systems: A classical analytic approach uses the
Schwarzian derivative to identify the moduli space with a
holomorphic vector bundle over Teichmuller space, while a more
recent geometric approach builds each projective structure from
hyperbolic and Euclidean pieces in a process known as grafting.
The major goals of this project are to understand the relation
between these two coordinate systems (both theoretically and
using computer experiments), and to use that understanding to
study Teichmuller spaces and deformations of Kleinian groups.
The PI will also explore ways in which the techniques used to
study complex projective structures could be adapted to other
low-dimensional geometric structures, such as real projective
structures.

The study of the shapes and configurations of geometric objects
has applications to diverse areas of science and engineering,
from understanding the folding of proteins or the formation of
galaxies to programming autonomous robots that must navigate
complex terrain. In a mathematical abstraction of this type of
problem, one studies the space of all possible shapes, or "moduli
space", of a geometric object. This project focuses on the
moduli space of complex projective Riemann surfaces, a class of
geometric objects that encode information about 3-dimensional
spaces (hyperbolic manifolds) in 2-dimensional form. Through
both theoretical study and computational experiments, the PI will
develop new tools for analyzing these structures, enhance the
connections between 2- and 3-dimensional geometry, and expand
applications of these structures in related fields. The project
will also produce computer images of the moduli space, displaying
its rich structure and complexity in a way that can be
appreciated by scientists and non-scientists alike.